INSIGHT: "INvestigative Stimuli for Intuitive Growth using High Technology"

Almost all introductory physics courses concentrate on concepts that were developed more than a hundred years ago. Scant attention is paid to ideas that involve complex behaviors. This emphasis on domains that are easily demonstrated in the laboratory has led to the use of physical models that may actual cripple students' ability to conceptualize non- Newtonian system. While we cannot simplify complicated ideas, we can make them understandable. The aim is to make quantum mechanics accessible to the intelligent, educated person. Interactive and graphically oriented sets of simulations related to quantum mechanics will be constructed exploiting the resources of the center for Astrophysics' scientific staff and its computer center. High school students of physics will be given powerful computer-tools to supplement real laboratory exercises. These simulations will permit students to carry out and analyze simulated laboratory experiments on topics that would be otherwise inaccessible to them. With the guidance of their teachers, students will be able to act as scientists and gain insight into science and its methods. Student misconceptions will be explored, and new ways to present modern material to high school students will be opened. Studies of student misconceptions will guide the development of further uses of advanced technology.